Collaborative Research: FRG: Geometry of moduli spaces of rational curves with applications to Diophantine problems over function fields

This project addresses the geometry of spaces of rational curves
on smooth projective varieties, with a view toward understanding the
structure of rational points for varieties defined over function
fields. Consider a rationally-connected variety: Which homology
classes contain free rational curves? Very free rational curves? Is
the space of such curves connected? Irreducible? Rationally
connected? Of general type? Is there a workable notion of `rational
simple connectedness' and is this a birational property? How can we
distinguish unirational varieties as a subclass of rationally-connected
varieties? These questions are related to fundamental problems in Diophantine
geometry over function fields: Does a rationally-connected variety
over C(t) satisfy weak approximation? Can the hypothesis of the Tsen/Lang
Theorem over C(s,t) be formulated geometrically? For rationally-connected
varieties over C(s,t), to what extent do cohomological obstructions
govern the existence of rational points?

This award will support research on systems of polynomial
equations with coefficents varying in parameters. Our goal is to
solve these equations with rational functions that depend on these
parameters. The case of a single equation (or of several independent
equations) was addressed in the mid 20th century; the feasibility
of finding a solution depends on the degree of the equation, the number
of free variables, and the number of varying parameters. Recently,
a comprehensive geometric approach was developed when there is just
one varying parameter. However, for multiple (not necessarily
independent) equations in two varying parameters much remains to be
understood. This work will also have broader impacts on the education of
graduate students and postdoctoral fellows, the development of web-based
collaboration tools, and the promotion of robust academic networks
linking universities across the country.